Acquisition of a Liquid Chromatography Mass Spectrometry System

This proposal is for the acquisition of a high performance liquid chromatography, ionsprayTM mass spectrometry system, the API-100 produced by Perkin-Elmer Sciex. This instrumentation will complement the existing equipment in the Mass Spectrometry Facility and will significantly enhance the mass spectral capabilities at the University and throughout the region by providing access to modern research instrumentation for the academic and industrial research community. For example, the existing equipment in the Mass Spectrometry Facility cannot currently address the needs of investigators looking at small polar molecules, neither can the existing equipment detect high molecular weight species, features the proposed equipment will address. This proposal contains brief research plans from ten investigators from a variety of departments including Civil Engineering, Chemistry, Botany, Chemical Engineering, Microbiology, Biochemistry, Food Science, Textile Chemistry and Wood and Paper Science. Acquisition of this instrumentation will substantially impact a large number of programs in biotechnology, engineering and environmental research. The API-100 will offer improved sensitivity, accurate and extended molecular mass detection limits, structural characterizations, identification of post translational modification of peptides, the ability to perform on-line separations, and the possibility of exploring higher order structures and nonconvalent interactions currently not accessible. One of the most significant advances in mass spectrometric analyses has been the development of the electrospray ionization and pneumatically assisted electrospray ionization (ionsprayTM) sources. The ionspray source design permits effective coupling of the analytical techniques of high performance liquid chromatography and mass spectrometry. The desorption ionization process, which occurs at atmospheric pressure, generates ions from thermally unstable and nonvolatile species. Even more important, is the fact that the desorption process can deposit multiple charges on the molecule, effectively extending the mass range of a standard quadruple mass spectrometer. While highly sensitive and accurate molecular weight determinations of large biomolecules are important, structural information necessary for identification can also be obtained through collision induced dissociation's in the ionspray interface. When combined with appropriate enzymatic digestion's and liquid chromatography, primary structure information can be obtained. This combination of techniques provide important information in the characterization of proteins, oligonucleotides and other biomolecules. This technique is not limited to the analysis of biomolecules. Small, polar molecules such as phospholipids, polar metabolic products, and environmental contanimants can be identified using the combination of liquid chromatography mass spectrometry. Previous liquid chromatography mass spectrometry interfaces such as flow-faqt atom bombardment (flow-FAB) are ineffective for the analysis of small molecules. For these applications chromatography is critical for separation of the complex mixtures while the mass spectrometry provides the molecular mass and structural characterization needed for identification without interferences from matrices. The administrative and scientific infrastructure is already in place to assure maximum benefit to the researchers who will utilize this equipment. A Mass Spectrometry User Committee exists and is responsible for establishing policy, operational guidelines and fee structure for the Facility. Operation and maintenance of the equipment will be the responsibility of the Mass Spectrometry Facility Staff which includes a Director, postdoctoral fellow, laboratory supervisor and undergraduate students working on their senior research. This administrative structure guarantees open and impartial access to all Facility equ ipment, not only by NC State researchers but by researches at other system schools including N.C. A&T and UNC-Chapel Hill. The proposed equipment will be incorporated into the existing Mass Spectrometry Facility which was established more than a decade ago and has maintained a reputation for excellence within the University and throughout the local scientific community. Currently fifty percent of the staff are women. The experience of the staff in both chromatography and mass spectrometry assures the immediate and successful utilization. A clear and urgent need, plus the advantages of improvements in sensitivity, flexibility, and accuracy indicates that acquisition of the API-I 00 is justified.